SFS Fellowships for Information Assurance Students

This proposal expands the capacity of our current educational program already producing high quality graduates in information assurance primarily through 30 fellowships and a unique support infrastructure. The broad-based program includes faculty from computing, engineering, political science, mathematics and management information systems to provide students with a broad range of course opportunities and career foci. As well, faculty from the education and library colleges help to design courses and other activities to ensure student success and leadership skill development. The fellowship program includes both undergraduate and graduate students leading to increased numbers of information assurance professionals.